Manufacturing Experts/Instructional Video Modules

9415422 Fillo ABSTRACT Manufacturing Experts/Instructional Video Modules The State University of New York at Binghamton, in partnership with Cornell University, proposes to develop video-based instructional materials (modules and "video textbooks") with industrial experts in the classrooms to educate students in dual-use electronic packaging technologies. The project will be closely linked with two university-industry consortia and utilize industrial and faculty expertise available through the State/Industrial University Cooperative Research Center on Electronic Packaging. It is open to graduate students and advanced undergraduates as well as defense and commercial industrial workers. ***